PYI: Generic, Scaleable Parallel Computing Tools for Fluid Dynamics

This research will focus on the development of a generic, scaleable parallel computing tool for fluid dynamics. This tool will be a concrete demonstration of a broader research approach to using scaleable parallel computers. This approach is based on problem structure: defining scaleable, generic building blocks and strategies for a specific application domain.